The Solar Wind in the Outer Heliosphere

The PI will observe the dynamical effects of pickup protons on solar wind structure and shocks in the outer heliosphere; in particular, the global solution of the pickup proton solar wind inside the termination shock. He will primarily use a system of MHD solar wind equations for the mixture of three species - electrons, solar wind protons, and pickup protons - and a system of pickup proton equations. He can simultaneously solve the two equation systems numerically with an analytical solution for the distribution function of interstellar neutral hydrogen in the heliosphere. Finally, he will determine the effects of pickup protons on the solar wind shocks jump condition, the interaction of interplanetary shock with solar wind structures, shock-shock interactions, and the termination shock location and heliopause.